Postdoctoral Fellowship: EAR-PF: Reconstructing the Last Environments of the Bering Land Bridge

Between 26,500 to 19,000 years ago, the North American and Eurasian continents were a wide, continuous swath of land called Beringia. During this time, Earth’s climate was colder than today and large expansive ice sheets existed across the continents, leaving sea level ~120 meters lower than today. With this lowered sea level, a landmass called the Bering Land Bridge connected North America with Eurasia, providing a pathway for the migration of humans, animals, and plants between the continents. This project will study the past environments of the Bering Land Bridge using new sediment cores. The investigator will use preserved sediment in the cores to reconstruct what this region would have looked like and how it might have affected the life living there at that time. The results of this study will provide a better understanding of the Earth’s changing environments and will benefit society by providing residents of this region with insight into current and future coastal flooding hazards.

The postdoctoral fellow will study microscopic algae, called diatoms, from sediment cores to reconstruct environments of the Bering Land Bridge and characterize the landscape changes that occurred before and during the submergence of the land bridge. Given its submergence under what is now the Bering Sea, as well as difficult research conditions, there is little known about the land bridge from direct observation, and limited knowledge regarding the character and timing of its flooding and how this event impacted the humans, animals, and plants that once lived there. To accomplish this research, the investigator will 1) construct and apply an expanded modern diatom database that will be used to produce accurate reconstructions of the Bering Land Bridge landscape; 2) reconstruct ancient freshwater environments of the Bering Land Bridge and; 3) characterize the transitional intertidal environments across the Bering Land Bridge to reconstruct the environmental effects, timing, and pattern of the submergence. This research will directly contribute towards interpreting the transitional sequences within the Bering Land Bridge cores to advance knowledge about the evolution of the Central Beringian landscape through time. More broadly, it has the potential to inform present-day coastal challenges.